Gate Control of Light Emitting and Lasing Thyristors

9523729 Mitin The development of new principles of optoelectronic device operation is a problem of great importance for modern optoelectronic integrated circuits, optical computing and optical communication systems. III-V direct band gap PnpN thyristor-like structures are currently used as efficient light-triggerable power devices, optical amplifiers, dynamic optoelectronic memories, and two- and three-terminal optoelectronic switches. Progress in fabrication technology has led to a significant improvement of the parameters of thyristor-like devices, which in turn has led to new optoelectronic applications. Our proposed use of the intermediate incomplete turn-off regime constitutes a new principle, which can essentially extend functional capabilities of these potentially key components of optoelectronic computing and optical-fiber communication systems. The proposed research is aimed at utilizing the incomplete turn-off regime of gate controlled light-emitting and lasing thyristors for modulation of light intensity and switching purposes. In this regime a part of the middle p-n junction is reverse biased and blocks the current, while the remaining part of the structure is highly conducting and light-emitting. The size of the light-emitting area and the light intensity in this region can be controlled using small gate signals. Moreover, gates make it possible to control the position of the light emitting region. These features allow decreased switching times of optoelectronic switches and the creation of new types of optical devices for the high-frequency modulation of emission intensity and logic circuits. In the proposed regime of operation the mechanism of carrier removal is based solely on the effects of the electric field, and is completely free of recombination lifetime limitations, which define the speed of conventional operation regimes. The goal of this project is to develop a new type of multifunctional optoelectronic device. The research will be based on a computer simulation of gate-controlled light-emitting devices and lasers. Simulation of stationary and nonstationary squeezing of electron-hole plasma in partially turned-off optothyristors will be carried out, to investigate squeezing effects on the parameters of light radiation. Optimum conditions for effective control of light power and decreasing of switching times will be determined. ***